CISE Research Instrumentation: Research in Parallel and Shared-nothing Database and Storage Systems

CDA-9529470 Hanson, Eric N. Johnson, Ted Su, Stanley University of Florida Gainesville, FL CISE Instrumentation: Research in Parallel and Shared-nothing Database and Storage Systems The University of Florida Computer and Information Science and Engineering (CISE) department is undertaking the following three research efforts: (1) a project investigating the use of shared-nothing multiprocessors for fast rule processing in active database systems using a partitioned, parallelized discrimination network, (2) a project to develop and evaluate parallel techniques and algorithms for object-oriented knowledge-base management systems to support data partitioning and distribution, query processing, query optimization and knowledge rule processing using a network-of-workstations (NOW) environment, and (3) a project to develop high performance storage servers to allow storage and processing of data generated by high energy physics experiments. All of these projects are experimental in nature, and involve implementing parallel software prototypes. This experimentation is essential to help validate design proposals and get feedback on the designs to help refine and improve them. The research instrumentation, consisting of four new high-speed workstations and a very-high-speed communication network, allows the construction of a parallel processor to conduct the work described.